Factor-Dependent Splicing of Chloroplast Group II Introns

Barkan

Many essential biological processes involve large, intricately
structured RNA molecules whose folding is likely to be problematic. In the
cell, structured RNAs are complexed with proteins or require transient
interactions with proteins to function efficiently. Such interactions may
serve to enhance the formation or stability of the correctly folded RNA.
"Self-splicing" group I and group II introns are highly structured
catalytic molecules that require proteins to function efficiently in vivo.
Because proteins that facilitate intron function can be identified
genetically and then studied in vitro, these provide convenient models for
probing the role of proteins in RNA catalyzed reactions and RNA folding.
Two factors that facilitate the splicing of group I introns in fungal
mitochondria have been examined in great detail. However, the study of
group II splicing factors has lagged behind. This project concerns two
nuclear genes in maize that are required in vivo for the splicing of
specific chloroplast group II introns. These genes provide unique tools
for addressing the roles of proteins in facilitating group II intron
splicing. The crs1 gene is required specifically for the splicing of the
atpF intron; the crs2 gene is required specifically for the splicing of
nine of the ten subgroup IIB introns in the chloroplast. The current goal
of this project is to define the role played by each protein in the
splicing process. The crs1 and crs2 genes were recently cloned by
transposon tagging. CRS1 is a novel, hydrophilic protein. CRS2 is
related to peptidyl-tRNA hydrolases, which function to recycle
peptidyl-tRNAs that are released as abortive translation products. In
vitro and "in E. coli " RNA binding and splicing assays will now be used
to distinguish between several models for the roles of these proteins in
the splicing process. Only a handful of proteins have been shown to
enhance the function of catalytic RNAs in vitro or in vivo. It is too
soon to know how large the repertoire of mechanisms will be for such
interactions. Therefore, the results of these experiments are likely to
lead to fundamental insights into the RNA folding problem and the role of
proteins in RNA catalyzed reactions. The results will also elucidate the
nature of the regulatory interactions between the nuclear and chloroplast
genome in a higher plant.

Lay summary:
The chemical reactions that occur inside cells are catalyzed by
molecules called enzymes that facilitate the breaking and forming of
chemical bonds under physiological conditions. Most enzymes are composed
of protein but some are composed of RNA, which is similar to DNA, the
carrier of genetic information. Regardless of its chemical makeup, the
folding of the enzyme into its correct three dimensional shape is critical
for its function. Mechanisms by which proteins fold have been studied for
many years. One fundamental concept to arise from this work is that most
proteins cannot fold spontaneously into their correct shape, but rather
require help from other protein molecules, dubbed "chaperones". Much less
is known about how catalytic RNA molecules assume their correct structure.
This project concerns two proteins, CRS1 and CRS2, that are required for
the function of certain catalytic RNA molecules. The goal of this project
is to come to an understanding of the role these proteins play in
facilitating the RNA-catalyzed reactions. In particular, this project
explores how these proteins modulate the folding or stability of the
catalytic RNA molecules. Only a handful of proteins have been shown to
enhance the function of catalytic RNAs. Therefore, the results of these
experiments are likely to lead to fundamental insights into the RNA folding
problem and the role of proteins in RNA catalyzed reactions.